U.S.-Italy Workshop: Angular Momentum and Mass Loss for Hot Stars; Ames, Iowa, October 1989

This award will support a workshop jointly organized by Professor Lee A. Willson of Iowa State University and Professor Roberto Stalio of the University of Trieste. The workshop will be the second in a series on dynamical phenomena in stars and circumste- llar environments. The first one was held in Trieste on pulsation and mass loss; this one will be on angular momemtum and mass loss and is being held in Ames, Iowa. The objective of this series of workshops is to explore and stimulate research in fundamental problems of stellar astrophysics. Fundamental unsolved problems of stellar astrophysics include the effects of angular momentum on stellar structure and evolution, the nature and efficiency of the processes by which angular momentum is redistributed within and lost from stars, and the role that stellar rotation plays in enhancing or driving stellar mass loss. A workshop on the topic of angular momentum and mass loss is timely because: (1) computational codes incorporating stellar rotation into stellar models are beginning to be developed; (2) there has not been a meeting recently concerning this topic as it applies to the more massive, rapidly rotating stars; (3) the importance of rotation as a factor in mass loss and in affecting pulsation, which in turn affects mass loss, is just beginning to be appreciated; and (4) observational techniques making use of rapid rotation to study pulsation properties of early type stars are also being developed. The topic is particularly appropriate for support under the U.S.- Italy Program since much of the important activity in this area is being carried out in these two countries.